REU Site: Molecular Biology

This award will support the participation of ten talented undergraduate students each year in the Research Experiences for Undergraduates program offered by the Microbiology Department at the University of Texas, Austin. This program, which encompasses 10 weeks each summer will allow the students to work in well- funded and equipped laboratories in which the research being conducted covers both prokaryotic and eukaryotic systems and deals with membrane localization, DNA replication and recombination, control of gene expression, immunological mechanisms, pathogenic mechanisms and viral transformation. Participants will work individually with faculty mentors but have access to all faculty through seminars and informal discussions in a format which is similar to that of previously supported successful programs. This new award will emphasize acquainting students with the variety of post-graduate opportunities for students interested in molecular biology. Activities are geared to promote interest in research careers and encourage students to apply to graduate schools in molecular biology. This award will foster the continued education and training of individuals who will be part of the next generation of basic researchers in the biological sciences.